Rate-Sensitive Experimental Catalytic Combustion Studies in Multicomponent Gas Environments

Abstract 9634922 Glumac The goal of the proposed investigation is to generate a benchmark experimental data set of fully characterized catalytic flows in which comprehensive surface chemistry mechanisms for pure metal and alloyed catalysts can be refined and validated. The PI proposes to use a stagnation flow environment to create a multispecies post-flame catalytic flow field in which measurements can be made and compared with model predictions. Both a low pressure (~10-30 Torr) and a rotating substrate will be used to increase transport of gas phase species to the catalyst surface in order to achieve strong coupling to surface reactions. Laser induced fluorescence (LIF) will be used to obtain the spatial concentration profiles of a set of key reactive species including NO, CO, H, NO2, and OH. The pure metal unsupported catalysts platinum, palladium, and rhodium along with the alloyed and oxide supported catalysts will be investigated. This combination of measurements will assist modelers in formulating a mechanism valid for commonly-used multicomponent catalyst materials.